The History of the Chesapeake Bay Drainage Ecosystem

Intense specialization in all fields of knowledge often precludes contact by scientists with common interests in environmental problems. A traditional vehicle for promoting cross-disciplinary research on important topics is conferences organized around a specific scientific research theme. This award continues NSF support for a project that has brought together a group of recognized experts on all aspects of social and ecological research in order to write a comprehensive history of the Chesapeake Bay drainage basin. The project focuses on long-term ecological change leading to present day problems facing the ecosystem, including both human and natural causes of change. One conference already has been held to bring together recognized authorities to exchange ideas and research findings. A second conference will reconvene this group and allow them to make arrangements for revisions in individually written chapter texts, which should result in a more coherent and synthetic volume that documents and explains how human and natural forces have shaped the Chesapeake Bay ecosystem. Through this innovative project, biological scientists from several specialties are assessing problems of natural change in concert with historians and anthropologists, who are focusing on the impacts of human activity. The result will be a comprehensive study of the Chesapeake Bay drainage basin, which in addition to providing valuable new information and insights about that region, will also provide a benchmark for integrative analyses of other regions.